Modeling and Simulation Biological Processes as Logical Enterprises

A potential use for scientific databases in the biological sciences involves the simulation of in vivo metabolic tracer experiments. The queries of interest in this area are difficult to answer using existing technologies. The proposal suggests two hypotheses: first, that complex biological processes can be modeled as logical enterprises comprising objects, processes and constraint dimensions; second, that deductive database technology is suitable for the computer realization of such models. To test these hypotheses, the proposal focuses on the possible representations of compounds, biochemical reactions, and biochemical and physiological constraints, and the computational consequences of the alternative representations. The reactions come chiefly from intermediary carbohydrate metabolism, and the strength of the computational ideas will be evaluated by comparing the results with experimental data from the biological literature. At the conclusion of the project, the strengths and limits of the different representational schemes should be much clearer. The impact on biological sciences will be the development of a generic representational solution for a wide class of biological problems, while the computer science impact will lie in the successful integration of the data and process aspects of the problem in a declarative, symmetric treatment. In the long run it is expected that computer systems of this type will be used for predictive purposes and in the a prior assessment of in vivo experiments. //